Summer Undergraduate Mathematical Sciences Research Institute

The Summer Undergraduate Mathematical Sciences Research Institute is designed to address the shortage of minorities and women in mathematical sciences research. The primary goal of the Institute is to provide approximately 15 nationally selected students with an intensive research experience augmented by formal and informal information sessions. SUMSRI is interested in, but not limited to, African Americans and other underrepresented minorities and women. To accomplish its goals, SUMSRI will run seven weeks on Miami University's campus in Oxford, Ohio. During these seven weeks, students will participate in research seminars in mathematics and statistics. The Institute will also include a technical writing seminar, a GRE preparation workshop, two short courses on algebra and real analysis, and colloquium talks given by well known mathematical scientists. The combination of information, educational experiences and ongoing support is designed to encourage these talented mathematics and statistics students to continue and thrive in the mathematical research environment and thereby eventually increase the number of African Americans and other underrepresented minorities with doctoral degrees in the mathematical sciences.